NSF Contract No. DAS-9816737-Task Order No.33

EIA-0118471
Quinn, Syndey
Allied Technology Group

Title: NSF Contract No. DAS-9816737-Task Order No.33

This award is to provide jacket assembly for 165 ITR pre-proposals.